SCIENTIFIC COMPUTATION OF PHYSICAL PROBLEMS

Modeling, analysis, simulation and computation involving physical phenomena have been important for many years in the fluid dynamics. This research activity will focus on vortex sheet computations, fast iterative solvers for transport equations, and nonlinear systems of hyperbolic conservation laws.